RI: Medium: Collaborative Research: Explicit Articulatory Models of Spoken Language, with Application to Automatic Speech Recognition

Proposal Title: RI: Medium: Collaborative Research: Explicit Articulatory Models of
Spoken Language, with Application to Automatic Speech
Recognition
Institution: Toyota Technological Institute at Chicago
Abstract Date: 05/22/09
This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).
One of the main challenges in automatic speech recognition is variability in speaking
style, including speaking rate changes and coarticulation. Models of the articulators
(such as the lips and tongue) can succinctly represent much of this variability. Most
previous work on articulatory models has focused on the relationship between acoustics
and articulation, but more significant improvements require models of the hidden
articulatory state structure. This work has both a technological goal of improving
recognition and a scientific goal of better understanding articulatory phenomena.
The project considers larger model classes than previously studied. In particular, the
project develops graphical models, including dynamic Bayesian networks and
conditional random fields, designed to take advantage of articulatory knowledge. A new
framework for hybrid directed and undirected graphical models is being developed, in
recognition of the benefits of both directed and undirected models, and of both
generative and discriminative training. The project activities include major extension of
earlier articulatory models with context modeling, asynchrony structures, and
specialized training; development of factored conditional random field models of
articulatory variables; and discriminative training to alleviate word confusability.
The scientific goal addresses questions about the ways in which articulatory trajectories
vary in different contexts. Existing databases are used, and initial work in manual
articulatory annotation is being extended. In addition, the project uses articulatory
models to perform forced transcription of larger data sets, providing an additional
resource for the research community. Other broad impacts include new models and
techniques with applicability to other time-series modeling problems. Extending the
applicability of speech recognition will help it fulfill its promise of enabling more efficient
storage of and access to spoken information, and equalizing the technological playing
field for those with hearing or motor disabilities.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0905633 PI Name:Livescu, Karen
Printed from eJacket: 06/10/09 Page 1 of 1